Support of the Water Science and Technology Board

Partial support is provided for the work being conducted by the Water Science and Technology Board, Commission on Engineering and Technical Systems, Commission on Physical Sciences, Mathematics and Resources of the National Academy of Sciences/National Academy of Engineering, and National Research Council.